REU Site in Chemical Engineering at North Carolina State University

This REU site involves a twelve-week summer research program for senior undergraduates. Nine faculty will participate in the program, with research interests in biotechnology electrochemistry, interfacial phenomena, statistical thermodynamics, polymer characterization and materials science. The program will include a tutorial series on statistics, computer programming and experimental methods for analysis. A seminar series will use the resources in other departments on campus and neighboring institutions as well as researchers from local industrial and public laboratories. In this manner, the collaborative possibilities in cross-disciplinary research open to chemical engineers and the research opportunities which exist outside the university will be made known to the student. The program will conclude with a day of public seminars, where the students will present their research activity and accomplishments.